Differentials in the Adams Spectral Sequence and Beyond

This project investigates deep questions in algebraic topology, a field of mathematics that studies the shapes and structures of spaces using algebraic methods. Central to the project is a long-standing problem concerning the classification of high-dimensional spaces, known as the Kervaire invariant problem. Major progress on this problem has been achieved over the past several decades, including the final unresolved case in dimension 126, which was recently settled by the PI and collaborators. This project aims to build on that solution and on the new computational techniques developed in its proof, with the goal of further studying the strong Kervaire invariant problem in dimension 126. In addition to advancing fundamental knowledge about the structure of spaces, the project will develop new mathematical tools with applications to other problems in algebraic topology, including identifying equivariant Hurewicz image for various ring spectra. Its broader impacts include the development of computational methods in algebraic topology, the training of students in advanced mathematical research, and active engagement in collaboration and network-building within the mathematical community.

Technically, the project focuses on computing differentials in spectral sequences, which are powerful tools for addressing difficult problems in homotopy theory. The primary goal is to study homotopy classes detected by the square of (h_6) in the Adams spectral sequence, which plays a key role in the final case of the Kervaire invariant problem, and to determine whether these classes contain elements of order two. The project develops and applies two new techniques -- the Generalized Leibniz Rule and the Generalized Mahowald Trick -- designed to propagate known differential information to broader contexts using synthetic spectra. These methods will also be extended to the equivariant slice spectral sequence, a framework of particular importance in chromatic homotopy theory. By developing structured approaches to filtered spectra and equivariant phenomena, the project will advance both the theoretical understanding and the practical computation of stable homotopy groups.